CAREER: Foundations and Implementation of Mobile Object Systems

Next generation computer systems will be characterized by pervasive
networked devices interconnected by a variety of networks and organized in
loose and dynamically changing confederations. This research addresses the
question of how to program these new computer systems. In particular,
foundations and implementation techniques for programming heterogeneous
distributed systems are being investigated. Specific results are expected in
the following areas:

Trusted Software Composition: This research focuses on developing a security infrastructure
for software composition consisting of a policy meta-language and
language-level enforcement mechanisms such as type-driven static
enforcement and automatic wrapper code generation.

Mobile Calculi: The project will investigates the foundations of a core
Internet programming language with a good algebraic theory, a natural
mapping into a distributed implementation, and expression of security
properties as types.

This work is expected to have applications in a variety of fields; from distributed
applications with high information assurance requirements to active
networks and distributed system monitoring and administration.